High Speed Heterostructure Devices Based on InP Substrates for Optoelectronic Receiver Applications

This research program investigates the issues involved in the design and fabrication of a monolithically integrated optoelectronic receiver with very high bandwidth and sensitivity. The receiver is based on the metal-semiconductor-metal (MSM) photodetector and heterojunction bipolar transistor (HBT) in the AIInAs/Gain-As materials system grown on InP substrates. The MSM photodiode potentially has a very fast intrinsic response with low parasitic capacitance, and it is compatible for integration with lattice matched HBT's in a vertical layered geometry. Optimization of the HBT epitaxial layer structure provides an effective means of widening the bandwidth, whereas reduction of the emitter area and improvement in emitter-base junction material quality will provide high current gain and low shot noise and generation-recombination noise components. This program considers improvements of molecular beam epitaxy growth procedures by using low temperatures and migration enhanced epitaxy techniques for the optimization of transistor and detector performance and reliability. Integrated receiver bandwidth and sensitivity limitations are optimized in the presence of intrinsic semiconductor device noise sources by materials improvements and receiver design. It is believed that successful integration of a optoelectronic receiver based on the MBE materials synthesized under this program will push the speed limitation significantly beyond the highest reported 2 Gb/s, with the best possible bit error rate limitation permitted by the semiconductor material properties.